Presidential Young Investigator Award

The proposed research involves recent work on the theory and modeling of ocean-atmosphere interaction will be applied to three areas: 1) Prediction of El Nino 2) Understanding mechanisms of drought through hierarchical modeling 3) Modeling interdecadal variability